ASM Conference on Multicellular and Interactive Behavior of Bacteria to be Held in Woods Holes, Massachusetts on March 28-April 1, 1993

The conference for which funds are requested is sponsored by the American Society for Microbiology and is titled "Multicellular and Interactive Behavior of Bacteria". The traditional paradigm of bacteria is that they are essentially single-celled organisms that do not interact with each other in any systematic way. Gradually, however, it is coming to be realized that bacteria, like most other living cells interact with each other as well as with other types of cells, both animal and plant. These interactions are manifested by their ability to mate with each other and to exchange signals prior to doing so, to collaborate in their metabolic processes, to form biofilms on a variety of surfaces, to undergo complex developmental processes, to engage in cooperative movements and to coordinate their pathogenic activities with each other. It has become clear that these cell-cell interactions often allow bacteria to carry out biotransformations that are not possible otherwise. The conference will bring together investigators working on these various aspects of bacterial multicellularity and offer the opportunity for the exchange of ideas and information. It is the hope of the organizers of the conference that it will facilitate the introduction of this new paradigm into the field of prokaryotic biology.